6th U. S. - Japan Workshop On Bridge Engineering: Analysis,Design, Performance and Strengthening

This is the 6th Bridge Workshop to be conducted under the auspices of the UJNR Panel on Wind and Seismic effects. This meeting will take place in May 1990 in California and Nevada. Papers will be presented and site visits made to bridge structures to observe new concepts and construction details. Proceedings will be published and distributed.